Implementation of Nuclear Physics Experiments for Undergraduate Physics Laboratories

9351060 Lisantti This project is incorporating nuclear physics experiments into laboratories for both science and non-science majors. The randomness of radioactive decay is being used to visualize statistical quantities and distributions. Experiments in Nuclear Physics, such as determining the range of the three types of radiation in various materials, are being used to familiarize students with radiation and with shielding used in radiation facilities. A NaI detector, along with a computer-controlled multichannel analyzer, are being used to introduce students to the interfacing of equipment to computers. A low level counting system utilizing a HpGe detector and associated electronics, computer, and software is being set up which will allow for environmental testing of materials from different local sites. This detector system is also being used in conjunction with our neutron source to perform some neutron activation analysis related experiments.